Geometric and Physical Aspects of Hyperbolic Dynamics

Geodesic flows are standard models of conservative (as opposed to
dissipative) dynamics. Large classes of mechanical systems
can be considered as geodesic flows. This point of view is most
fruitful when the underlying riemannian metric has enough local
symmetries or when it has negative sectional curvature. The latter case
belongs to the realm of chaotic dynamics.

We study geodesic flows of Weyl connections (generalizations
of Levi-Civita connections of the riemannian case).
A linear symmetric connection on the tangent bundle is called
Weyl if the parallel transport preserves angles between vectors.
These flows are models of systems out of equilibrium.
They were originally considered in physics
literature under the name of gaussian thermostats.
The systems have a forcing term accompanied by
the thermostatting term based on the Gauss' Least
Constraint Principle for nonholonomic constraints.
We revealed the geometric nature of the systems
with gausssian thermostats. We showed that also in this generality
if the sectional curvatures are negative the system has
some hyperbolic properties. However we do not know if it
is enough to force the uniform hyperbolicity (Anosov property).
To settle such questions we propose to study Weyl connections
with (local) symmetries. This project has the potential of
delivering new classes of systems with hyperbolic dynamics,
and/or classifying homogeneous Weyl connections with nonpositive
sectional curvatures.